Absorption Spectra of Quasars

Sargent, Wallace California Institute of Technology FY 96: $100,165 FY 97: $100,152 FY 98: $100,420 Dr. Sargent will use the Keck facilities on Mauna Kea to study the absorption line spectra of quasars in order to test hydrodynamic models of structure formation; cosmological parameters; and the evolution of gas in our Galaxy. =====================